Industry/University Cooperative Research Center for Material Handling

9417714 Pence This award provides funding for one year under the "Self-Sufficient Partnership for Research" Program at Georgia Institute of Technology's Industry/University Cooperative Research Center for Material Handling. The I/UCRC for Material Handling Research at Georgia Institute of Technology continues to develop and maintain a strong partnership with industrial member companies. In addition, the Center has been collaboratively working with the University of Arkansas as a Multi- campus type Center. Members have gained great benefits and experiences through this collaboration. The Center continues to meet the renewal criteria of the I/UCRC Program. The Program Manager recommends Georgia Institute of Technology be awarded $41,000 for one year under the "Self-Sufficient Partnership for Research" Program.